Contact and Symplectic Structures and Holomorphic Curves

DMS-0102298
Helmut H. Hofer

The main tool for most of the proposed projects is a
particularly adapted theory of holomorphic curves,
which has been developed by Dr. Hofer and his co-workers
in recent years. The fact, that there is such a close,
but completely unexpected, relationship between some
important class of dynamical systems and a suitable
theory of holomorphic curves has deep implications.
Immediately it makes it, in principle, feasible to
relate questions about large classes of dynamical
systems to recent mathematical theories like quantum
cohomology, Gromov-Witten invariants, and in low
dimensions even to Seiberg-Witten invariants. One of the
main goals of this project will be the development of a
mathematical machinery for constructing global surfaces
of section for three-dimensional Reeb flows and
generalizations thereof. In practice this means that
the study of certain three-dimensional dynamical system
can effectively be reduced to two dimensions. The other
goal is the development of a symplectic field theory.
Particular cases of such a theory are Gromov-Witten
invariants and Floer Homology.

Many physical systems like the flow of an incompressible
ideal fluid, the movement of a satellite under the
gravitational forces of celestial bodies, or the
movement of charged particles in a magnetic field,
to name a few, are examples of so called dynamical systems.
The mathematical theory of dynamical systems provides
tools to understand their complex behavior and allows
to make predictions. The particular examples mentioned
above are of so-called Hamiltonian nature. For such systems,
beginning with the work of Lagrange and Hamilton,
geometric tools have been developed leading to the
modern theory of contact and symplectic geometry. These
geometries play a central role in connecting mathematical
areas like dynamical systems, algebraic geometry and
smooth topology. This makes it possible to employ powerful
tools from different mathematical areas in the study of
important classes of dynamical systems and also to use
ideas from dynamical systems to study important intrinsic
questions in other fields by new methods.